COOPERATIVE RESEARCH PROGRAM WITH KOREA: CONTROL OF SEPARATED FLOWS

9500160 Glauser This award provides funds to permit Dr. Mark N. Glauser, Department of Mechanical and Aeronautical Engineering, Clarkson University, to pursue with Dr. Hyung Jin Sung, Department of Mechanical Engineering, Korea Advanced Institute of Science and Technology, for 24 months, a program of cooperative research on control of separated turbulent flows. The turbulent flow of a fluid over a bluff body (block) will be studied. For this flow, the collaborators will (1) study the influence of control on the spatial structure of the Proper Orthogonal decomposition (POD) eigenfunctions and (2) assess whether a POD based low dimensional dynamical systems model is feasible in this flow. Fundamental separated flows are encountered in many practical fluid engineering situations such as ducts and heat exchangers. The separated, reattached, and recirculating flow downstream of the separation point greatly enhance the amount of heat, mass, and momentum that are transferred, when compared to flows without separation at similar Reynolds number. Thus, this research is of practical as well as theoretical interest. The collaborators have extensive experience with separated flows and the application of the POD to various flows. Their strengths complement one another so that their cooperative effort should be truly beneficial in furthering understanding of the control of separated flows. This project is relevant to the objectives of the U.S.-Korea Cooperative Science Program which seeks to increase the level of cooperation between U.S. and Korean scientists and engineers through the exchange of scientific information, ideas, skills, and techniques and through collaboration on problems of mutual benefit. Korean participation in the project is supported by the Korea Science and Engineering Foundation (KOSEF). ***